RUI: Hidden Satellites: Outer Shell Effects in K-Alpha X-Ray Spectra

The K-alpha spectra of nickel, copper and zinc will be studied using state-of-the-art resolution available from a monolithic double crystal spectrometer. The objective is to measure the K x-ray lines with enough resolution to characterize the effects of multiplet splitting which are believed to result from perturbations by outer shell vacancies. The resulting data will make possible improved atomic structure calculations, and provide improved understanding of inter-electron dynamics.